Development of an Injection/Flowmeter Method for the Fine- Scale Determination of Permeability in ODP Holes

Among the highest priority objectives of the Ocean Drilling Program are those which concern fluid circulation in the oceanic crust and sediments, including studies of hydrothermal processes associated with crustal accretion and aging and of hydrogeological systems at accretionary margins. Fluid circulation in the crust and sediments controls the alteration of crustal chemistry, transports heat and alteration products, and plays a controlling role in determining physical properties of margin sediment sequences. As permeability is the key physical property that directly controls fluid circulation, its measurement in situ and the determination of its variation with depth in various hydrogeological settings is an important objective. This award will acquire and deploy a recently developed technique for making rapid and detailed measurements in boreholes. Although developed for continental drilling, the injection/flowmeter technique should be adaptable for use from the JOIDES Resolution and will give a more continuous and detailed record of permeability than is presently available. The principal investigators have extensive backgrounds in permeability studies and in developing techniques for downhole measurements in both continental and oceanic boreholes.